Geometry and Dynamics in Riemannian and Finsler Spaces

Abstract for DMS - 0103739

The project can be conditionally divided into the following (related)
parts: Study of periodic metrics (including area-minimizing properties
of flats in normed spaces, symplectic filling volumes for Finsler
metrics, asymptotic volume growth of Finsler tori, Riemannian metrics
without conjugate points on products, and Lagrangian systems on tori
without conjugate points); Relationship between bi-Lipschitz equivalence
and quasi-isometries (with the most intriguing cases of general Penrose
tilings and finitely presented groups, including co-compact lattices in
the same Lie group); Products of non-commuting maps, flows of positive
metric entropy, and sequential dynamics; Applications of geometry of
non-positive curvature to algorithmics and dynamics; Geometry of
non-negatively-curved manifolds (foliations by minimal surfaces,
isolated flat totally geodesic tori); the PI's graduate students work
on generalizations of the Finite Distance Theorem to non-Abelian groups,
approximations of embedded surfaces with small variation of Gaussian
curvature by developing surfaces, constructing Lipschitz homeomorphisms
with prescribed Jacobians, generating certain groups by products of
conjugates of elements from a bounded subset.

The first part of the project deals with large-scale invariants of
periodic metrics. Their physical analogs are macroscopic properties of
periodic media (such as a crystal substance), and the problem is to
understand how such properties can be recovered from microscopic
characteristics and vice versa. A large part of the project belongs to
a borderline between geometry and dynamics, and in particular new
applications of geometric methods. For instance, problems of stability
in sequential dynamics model situations where the laws of evolution of
an object (for instance, a physical or an ecological system) are subject
to small perturbations; it is desirable to understand the result of such
perturbations in the large time scale. There are also applications of
modern geometry of singular spaces to problems originated from statistical
physics (such as estimates on the number of collisions of particles in
gas models, a problem that goes back to Boltzmann), and to computational
problems (such as: how to numerically find a shortest path between
around several obstacles). The last part of the project deals with
stability of geometric objects described by curvature-type
characteristics. Indeed, whenever we study a geometric object
(for instance, a surface), we deal with imprecise information. Thus it is
important to understand whether small deviations in this information
can result in crucial changes for the geometric object (or even a
non-existence of a model object).